Collaborative Proposal: COSEE Center - Centers for Ocean Sciences Education Excellence - Networked Ocean World (COSEE-NOW)

COSEE-NOW proposes to use information generated by ocean observing systems (OOS) as a powerful platform to enhance public literacy about the ocean and stimulate public support for ocean research. The mission of COSEE-NOW is to enable use of transformative ocean research and effective education practices to inspire students and the general public in ocean exploration, discovery, and stewardship. COSEE-NOW has identified three key areas of investment that combine the resources and experiences of the project PIs to promote high-quality OOS education and public outreach (EPO) and contribute to the COSEE network. The goals include:

1) Assess the knowledge and needs of target OOS audiences: The PIs propose to survey target audiences including the K-16 students/teachers, policy/decision makers, and the science literate public to understand their awareness, knowledge, and attitudes related to OOS. The results of these needs assessments will enable COSEE-NOW and OOS EPO providers to develop useful products while increasing awareness of OOS and its relevance to these audiences.
2) Improve collaboration and coordination among scientists and educators in the OOS community. This proposed effort will support EPO programs within existing OOS networks while helping to develop planned OOS initiatives. Our work will increase the effective translation and dissemination of scientific data and knowledge to broader audiences and improve use of effective education practices among scientists in the OOS community.
3) Increase public awareness of Ocean Observing Systems. COSEE-NOW is externally focused on building public awareness of OOS through innovative media products, K-12 classroom applications, and free-choice learning environments. Through this goal, we expect to increase awareness of OOS and ocean literacy concepts among a variety of target audiences.

COSEE-NOW is composed of an accomplished team uniquely qualified to conduct the proposed tasks. COSEE-NOW includes core partners in formal education (Rutgers University), informal education (Liberty Science Center), and research (Woods Hole Oceanographic Institution). Project partners including Virginia Institute of Marine Science (VIMS), Stevens Institute of Technology- Center for Innovation in Engineering & Science Education (CIESE), Monterey Peninsula College ? Marine Advanced Technology Center (MATE), and Word Craft also contribute to the COSEE-NOW team.